BCC Geographical Information Systems Technology Program

Geology (42)

Burlington County College (BCC) of New Jersey is adapting, enhancing, implementing, and disseminating a geospatial technology program. To accomplish this goal, BCC is drawing upon the experiences and knowledge of geo-spatial technology curriculum projects at: San Mateo Community College of California, Lewis and Clark State College of Idaho and Brevard Community College of Florida. BCC is also utilizing the expertise of an Advisory Board and community based program partners: Burlington County Federal Soil Conservation District, Burlington County Data Processing Center, Rutgers University Geomantics Program, and Ann Johnson of ESRI.

BCC is offering the following:

An interdisciplinary Geospatial Technologies Associate of Applied Science (A.A.S.) degree program and Geospatial Technologies Certificate Program that consists of a sequence of introductory courses in geographic information systems (GIS), global positioning systems (UPS), and remote sensing (RS) at the two-year college level.

Interdisciplinary courses in natural resources management, human ecology, and statistical and
mathematical modeling that emphasize the application of geospatial technologies to a broad range of issues such as sustainable population growth, land use management, transportation route planning, and water-quality management.

Experiential education opportunities that place students in meaningful and productive roles as technicians and researchers within the local community as part of community/campus course project teams or as interns, volunteers, and employees.

Strategies to build faculty and staff capacity in GIS technology.

.